1993 Gordon Research Conference on the Chemistry of Supermolecules and Assemblies; Summer 1993; New England College; Henniker, NH

9314264 Trend This project will provide graduate students and post-docs stipends for attending the 1993 Gordon Research Conference on the Chemistry of Supramolecules and Assemblies scheduled for 4-9 July 1993 at New England College in Henniker, NH. Ten supported attendees will be chosen by the Chair and Vice Chair of the conference from applicants solicited from professors having research programs in the field. The support, amounting to $500 per participant, is designated for conference fees and a nominal amount for travel. ***